Acquisition of Scientific Computation Infrastructure for Strategic Initiatives in Manufacturing, Materials & Design and Environment & Energy.

This award is for the acquisition of infrastructure to support computational science and engineering with the enhancement of the Scientific Computation Research Center at Rensselaer Polytechnic Institute. The infrastructure consists of a parallel computer along with visualization stations, network file systems, application servers, and high performance desktop servers to encourage the use of high performance computing and visualization in modern research. The areas that will especially benefit include Design and Manufacturing, Composite Materials, Integrated Electronics, Robotics and Automation, Electromagnetics and Energy Systems, Fluid Dynamics, and Groundwater Transport. The infrastructure will also be used for graduate training in high performance computing.